Rydberg Wave Packets in Two Electron Systems

This program involves a comprehensive study of Rydberg wave packets in two-electron systems. Three directions will be followed: the excitation and probing of two-electron wave packets using short pulsed lasers, an investigation of double Rydberg wave packets, and a study of inner electron multi-photon ionization of atoms with one electron in a wavepacket state. Emphasis will be placed on those systems for which spectroscopic investigation of the energy eigenstates provides an incomplete physical understanding of the system; temporal studies will provide important additional information.